Joint 3-D Reconstruction from Cryo Electron Microscopy and Solution X-ray Scattering Data

The objective of the research is the development of new methods for jointly analyzing cryoelectron microscopy (EM) and solution x-ray scattering data in order to determine the 3D structure of spherical viruses. Research in this area is timely because improved microscopes and cryo EM techniques are increasing the flow of images while synchrotrons and associated low-angle scattering beam lines allow the measurement of qualitatively superior solution x-ray scattering data. The joint use of both types of data is a natural approach because of compensating strengths and weaknesses. For instance, cryo EM images depend on unknown orientation parameters while solution x-ray scattering data does not. There are two major themes that extend through the work: a new model for the scattering density of the particle and a unified way of combining the model with all of the experimental data in order to reconstruct the particle. The purpose of the model is to precisely and concisely describe the particle. In particular, the proposed model enforces the finite real-space extent of the particle, allows more than one type of symmetry to exist with an individual particle, has few parameters, and is mathematically simple in both real and reciprocal space.